Improving Undergraduate Instruction in Chemistry Through theUse of a Gas Chromatograph/Mass Selective Detector System

A recently acquired, versatile, state-of-the-art gas chromatograph/mass selective detector (GC/MSD) is now being used in the undergraduate chemistry program at Carleton College. Direct student access to this sophisticated microcomputer-controlled instrument provides powerful motivation for students to follow careers in science. The system is used in both upper-level and introductory-level courses, including the junior-year integrated laboratory sequence, undergraduate research projects, organic chemistry, and the introductory chemistry laboratory. A significant fraction of the chemistry majors at Carleton are women.